Studies of broken symmetries and fundamental constants with muons and pions

This project is focused on two areas of nuclear physics
research. The first area is the realization of the basic
symmetries of the strong interaction in the low energy
interactions of the nucleon. The second topic is the
determination of the Fermi coupling, a fundamental
constant in electroweak theory.

Encoded in quantum chromodynamics are various symmetries.
In general these internal symmetries yield conserved currents
that constrain the interactions of pions and nucleons.
Our experiments address the signatures of chiral
symmetry and isospin symmetry in low energy
processes. The manifestation of chiral symmetry and
isospin symmetry is rich and complex, and involves
spontaneous symmetry breaking and explicit symmetry
breaking. Further their realization is deeply connected with
the origins of hadron masses, the effects of quark masses,
and the special nature of the pion. Our proposed experiments
on muon--nucleon interactions and pion-nucleon interactions
will address two puzzles in our current understanding
of how both chiral symmetry and isospin symmetry are realized
in low-energy interactions of pions and nucleons.

Electroweak theory is the fundamental theory
of electromagnetic interactions and weak interactions.
The theory is based on two local symmetries which
generate two gauge forces. Through the interaction
between these gauge fields and the Higg's field the
bosons mix and acquire mass, thus yielding the massive
W, Z bosons that mediate weak interactions, and the
massless photon the mediates electromagnetic interactions.
The interactions are determined by three parameters,
which themselves are fixed by measurements of the fine
structure constant, the Z boson mass, and the Fermi coupling
constant. We are undertaking a new measurement of the
positive muon lifetime to obtain an improved determination
of the Fermi coupling constant. The Fermi coupling constant
is an input parameter in all electroweak calculations,
and combined with other quantities it permits
both important tests of the standard model and key constraints
on the physics beyond.

This experimental research is conducted with beams
of pions and muons at the TRIUMF Laboratory in Vancouver,
Canada, and the Paul Scherrer Institute near Zurich, Switzerland.
The relatively small-scale of our experiments offers both broad
opportunities and excellent training for undergraduate students,
graduate students and post-doctoral researchers.